The Pennsylvania State University REU Site Program: Biology and Chemistry of Nutritional Processes

The Graduate Program in Nutrition at The Pennsylvania State
University is pleased to continue its offering of a summer program,
"Research Experiences for Undergraduates (REU) Site Program: Biology and
Chemistry of Nutritional Processes." The intended impact is to improve the
interest level and qualifications of participants to apply to and enroll in
post-graduate education, especially in preparation for careers in science
research and/or college teaching.

This experiential learning program builds on the commitment and
capabilities of fifteen faculty members. Research areas focus on nutrient
metabolism related to neurological development, lipoprotein metabolism,
antioxidant defense functions, skeletal development, endocrinology,
immunology, inflammatory response, behavioral neurobiology, and food
science. The 10-week summer experience will provide 10 students: (a)
knowledge of the varied approaches, techniques, and critical thinking
skills used in research; (b) excitement of hands-on scientific inquiry; (c)
practice to improve communication skills; and (d) guidance in graduate
programs and career planning. Seven students will be recruited from a
national applicant pool composed of minority students or students from
institutions with limited research activities; three students will come
from PSU. Penn State will financially support 3 students, assist in
purchasing supplies needed for the student projects, as well as provide the
resources and mentoring available at a top research institution.

Within the team environment of the faculty mentor and the graduate
student or other staff person, each undergraduate student will design a
research project that can be successfully completed within the summer
timeline. Students will attend seminars by faculty, as well as go to
workshops to improve scientific communication skills. Social events will
complement the scientific community developed within the faculty members'
laboratories. Finally, the summer will culminate in a student research
poster session, similar to that of a national science meeting.